Search for Coherent Vibrational Energy Transfer in Proteins

A new experimental approach to the problem of coherent long- range vibrational transport of energy in protein alpha- helical segments is proposed. Previous approaches have concentrated on the optical properties of the protein, the carrier of the energy. In this method priority is given to making the initial and final locations of the energy well defined. A time-of-flight measurement in the picosecond regime then establishes whether the energy is transferred from a donor to the acceptor with a significant probability, and, if it is, the speed of propagation in the protein. Preliminary computations and experiments have established the conditions under which transport by this mechanism should be detectable. The proposal is to set up appropriately labelled protein segments and a relevant model system and to make the experimental search.